Molecular Phylogeny of the Peronosporomycetes (Oomycota or Heterokonta)

0213076
Hudspeth
Phylogenetic relationships within the Peronosporomycetes, a
diverse group of economically important fungal-like protists often
referred to as oomycetes, are poorly understood. In this study the
primary goal is to establish an extensive DNA database derived from
mitochondrial and nuclear genes of a diverse selection of these
organisms. The resultant database is then to be used to infer
evolutionary relationships of major, understudied, and newly identified
genera. With the development of peronosporomycete specific DNA primers
this study emphasizes both obligate and opportunistic parasites of
plants, algae, and terrestrial and marine animals. The resulting
inferred phylogeny is expected to provide new insight into evolutionary
relationships and trends within the Peronosporomycetes, and to identify
anomalously placed taxa for reevaluation using morphological and
biochemical data.
The broader impact of this study stems from the inclusion in the
Peronosporomycetes of a significant number of pathogenic organisms.
Hosts include representatives from all eukaryotic kingdoms. Plant
pathogens encompass a spectrum of cereal and leguminous crops, rosaceous
fruit trees, forest trees, and ornamental plants as hosts. The societal
impact of the downy mildews Plasmopara and Peronospora (responsible for
the decimation of the French wine and Cuban tobacco industries) and of
Phytophthora infestans, the causative agent of late blight of potato
(famines in Ireland in the mid-1840's and World War I Germany), is part
of the historical record. Currently, the worldwide economic impact of
these and other peronosporomycete genera amounts to tens of billions of
dollars in crop losses and disease control. The newly identified
Phytophthora ramorum (causative agent for sudden oak death) with its
broad host range currently threatens large stands of trees in the
western U.S., and aggressive hybrid variants of other
"phytophthoras" with their expanding host ranges are emerging
as additional threats. In the rapidly expanding area of aquaculture,
peronosporomycete animal "mycoses" affecting roe, fingerlings,
molluscans, and crustaceans are currently being identified. Even the
incidence of mammalian "pythiosis" (Pythium isidiosum) in an
increasing number of hosts, including man, is being recognized.
Establishing a molecular database for this group provides both a
resource for the early and rapid molecular identification of pathogens,
and a significant step in understanding the evolutionary history and
trends of the Peronosporomycetes.